Development of a Kit to Support Cost-efficient Disseminationof Volunteer-based Ecology Education Outreach Projects

In the mid-1980's, Denver Audubon Society developed a model Urban Education Project. The Project engages thousands of 8-12 year olds and trained volunteers in hands-on investigations of neighborhood plants, animals, and ecological relationships each year. With NSF support, we have helped seven other cities establish similar projects and have proven that the project model is highly successful and adaptable. This proposal requests funds to develop a kit of strategies and materials that will enable us to further disseminate the model in a time-and cost-efficient manner. The dissemination kit will be tested as experienced project leaders from established projects help eight new cities start local projects. Their feedback will direct us in revising the kits. By 1993, the completed dissemination kits will give experienced project leaders the tools necessary to help parents, informal education institutions, and concerned citizens across the country establish similar ecology education projects in their communities.